Increasing Numbers, Connections, and Retention in Science and Engineering (INCRSE)

Increasing Numbers, Connections, and Retention in Science and Engineering (INCRSE) is a program which focuses on increasing the quantity, quality, and diversity of all STEM majors by employing both recruitment and retention strategies. Retention of STEM majors is being accomplished by the redesign of science labs and mathematics courses based on current research in student learning. Mathematics, science and engineering courses are linked using applied projects that integrate course objectives, promoting student learning and engagement. INCRSE sponsors seminars and biweekly brown bag lunches for faculty at the lead institution as well as regional community college faculty to support efforts in student engagement and retention. STEM career awareness among majors and non-majors aids with both retention and recruitment of current students by integrating STEM career awareness into core curriculum mathematics and science courses and the project team works with Career Services to bring STEM employers to the Career Exposition. INCRSE has partnered with the office of Admissions to create a Transfer Student Information Day for recruitment to STEM of transferring community college students. Potential transfer students observe courses, meet with STEM faculty and advisors, and tour campus with STEM majors serving as tour guides.